Presidential Young Investigator Award: Digital Image Processing

The objective of this research is the development and theoretical analysis of novel techniques in digital image processing and coding. The long-range plan includes nonlinear image filtering for a variety of problem areas such as noise smoothing with simultaneous edge enhancement, shading correction, and flicker suppression. Parallel VLSI implementation of nonlinear image algorithms with a regular compact array structure of processing elements will be pursued.